Characterization of the archaeal cell division regulatory network

This project aims to understand how microbes continue to grow when exposed to extreme stress. Microbes called archaeal extremophiles live in the most extreme places on Earth such as boiling hot springs, saturated salt lakes, and deep-sea vents. Archaea are the evolutionary ancestors of today’s complex cells (eukaryotes), and the way in which eukaryotes divide was inherited from archaea. This research will use cutting edge genomics and live cell imaging techniques to investigate how the archaeal cell division program changes during stress. This research has the potential to reveal how complex cells evolved their resilience to proliferate despite adverse environments. Given that extremophile growth under stress is of intense interest to biotechnology, especially for microbial engineering for robust bioproduction, this foundational research has important implications for the future bioeconomy. The goal of the associated education plan is to pique student interest in STEM careers by engaging them in research earlier in their education. We are collaborating with multi-disciplinary undergraduate student teams as part of the Duke Data+ program to deploy user-friendly computational tools for analysis of data generated through the research. These activities will train highly skilled scientists for development of tomorrow’s workforce.

This project aims to reveal how cell division is regulated in response to environmental stress in archaea. In all organisms, cell growth is exquisitely regulated in response to the external environment. Stressful conditions can produce toxic oxygen radicals that damage DNA and other essential macromolecules. Regulatory mechanisms called checkpoints govern the cellular decision-making process that stops growth to allow time for damage repair and resumes growth once repair is complete. This process, central to the physiology of all cells, has been studied intensely for decades, yielding deep insight into cell cycle mechanisms. However, such work has focused on only a few bacterial and eukaryotic model organisms, leaving the cell cycle and its regulation unexplored across much of the tree of life. Based on our prior research, we hypothesize that a novel archaeal gene circuit serves as the fulcrum of the balance regulating the trade-off between growth and stress gene expression, enabling the appropriate cellular response to environmental variables. This research will investigate how the molecular mechanisms of this circuit sense stress to actuate cell growth and division in the appropriate environmental context. Archaea are now recognized as the evolutionary progenitors of eukaryotes, including molecular mechanisms of cell division and transcription. As such, a deeper understanding of how archaeal cell division is regulated will reveal the deep evolutionary history of cell division resilience. Furthermore, because archaeal extremozymes are important for biotechnology, these gene circuits can be leveraged to control cell division and growth in future bioengineering applications.